The 1997 Aspen Winter Elementary Particle Physics Conference, Aspen, Colorado

The 1997 Aspen Winter Conference on Particle Physics, to be held in Aspen January 19-25, 1997, will focus on `Particle Physics Enters its Second Century.` The latest results of most major particle physics experiments will be discussed, as will the status of various approaches to elementary particle theory. Then prospects for future experimental facilities will be assessed. The conference will make possible a very important exchange of ideas as the particle physics community works to shape the future of this field.